REU Site: Georgetown University REU for Materials Physics

NON-TECHNICAL DESCRIPTION: This REU Site provides undergraduates from diverse backgrounds and a broad spectrum of institutions an opportunity to engage in important and challenging research in the fundamental science of materials, while developing technical and professional skills necessary for a successful career in science. In addition, students are exposed to the role of science, particularly materials research, in public policy, and are meeting with science policy practitioners in the Nation's Capital. Recruitment efforts focus on students from schools with limited research programs, as well as members of underrepresented groups. The engagement in focused research projects, exploration of the broader role of science and scientists in society, and development of lasting relationships with faculty mentors positively influences student perceptions of careers in science and helps increase the pool of future materials researchers. In addition, students who participate in this Site are uniquely qualified to understand and communicate the importance of materials science in technological progress and in addressing societal challenges.

TECHNICAL DETAILS: Each year, nine undergraduates from diverse backgrounds and a broad spectrum of institutions are recruited for a 10-week summer research experience in materials physics at Georgetown University. Students engage in experimental, computational, and theoretical research projects in nanoscale physics, soft matter, device physics, active matter, biophysics, and cold-atom systems. Students also participate in a variety of professional development activities. Taking advantage of Georgetown's location in the Nation's Capital, students are exposed to the role of science, particularly materials research, in public policy. These activities build on Georgetown's existing programs designed to engage undergraduate science majors directly with the government on issues of national importance and help build an understanding of the connection between scientific research and the world outside of the laboratory.